Nonlinear Geo metric Equations of Monge-Ampere Type and Canonical Metrics

Abstract

Award: DMS-0604805
Principal Investigator: Jian Song

This proposal concerns existence and regularity problems of the
nonlinear Monge-Ampere type equations from geometry and physics.
The problem of finding canonical metrics on a compact Kahler
manifold has been the subject of intense study over the last few
decades. In his solution to Calabi's conjecture, Yau proved the
existence of a Kahler-Einstein metric on compact Kahler manifolds
with vanishing or negative first Chern class. An alternative
proof of Calabi's conjecture is given by Cao using the
Kahler-Ricci flow. However, most projective algebraic varieties
do not have definite or trivial first Chern classes. Recently
Perelman has made major breakthrough in Hamilton's program as an
approach to the Poincare conjecture and Thurston's geometrization
conjecture. The principal investigator proposes to study the
canonical metrics on the canonical models of projective varieties
of positive Kodaira dimension by applying the Kahler-Ricci
flow. Such canonical metrics are constructed by the deformation
of the Kaher-Ricci flow on minimal projective surfaces of
positive Kodaira dimension. These generalized Kahler-Einstein
metrics can be considered as an analytic version of the abundance
conjecture in algebraic geometry and will also lead to new
advances in the understanding and application of the Ricci
flow. In Donaldson's far reaching program, the geometry of the
infinite dimensional symmetric space of Kahler metrics in a fixed
class is related to the existence and uniqueness of constant
scalar curvature Kahler metrics. The principal investigator also
intends to study the uniform approximation problem of the
Monge-Ampere geodesics in infinite dimensional symmetric space by
those in the finite dimensional Bergman spaces on toric
varieties. The precise understanding of this problem will give
new insight into the conjecture proposed by Yau between the
relation of constant scalar curvature Kahler metrics and certain
stability in the sense of geometric invariant theory. The
principal investigator will also apply the moment map point of
view and study various geometric flows arising from Kahler
geometry as well as symplectic geometry proposed by
Donaldson. The first is the J-flow, which is the gradient flow of
functional related to the Mabuchi energy. The second is a moment
map flow in a hyperkahler four manifold. The principal
investigator intends to study the question of convergence and
singularities os such parabolic flows.

Since the discovery of the general relativity, geometric analysis
has become crucial to both mathematicians and physicists.
Problems in this proposal arise naturally from our attempts to
understand nonlinear differential equations from geometry and
physics. The solutions to these problems will contribute to
various fields of sciences such as physics and cosmology in the
deep understanding of our universe. The method of analyzing the
singularities of nonlinear equations will have wide applications
in engineering and economics.